Droplet Emission Mechanisms and Submicron Monodisperse Aerosol Generation in Electrosprays

It is proposed an experimental study on the electrostatic atomization of aerosols with controlled size distribution in the range between 0.05 to several microns. The objective is to determine the conditions required for monodispersity, establish the scaling law for particle change and mass, and identify the fundamental mechanisms. It is expected that a representative set of experimental data will be obtained in an unexplored region of electrostatic spraying. Physical insights and possible concepts for the development of the electrospray technology are targeted. The results from this project may be of use in analytical chemistry, cluster physics, materials processing and electronics fabrication.